Conference: Engineering Foundation's Second International Conference on Molecular Electronics-Science and Technology. To be held December 15-19, 1991 in St. Thomas, Virgin Island

The conference objective is to gather the proper mix of professionals, chosen among the leading scientists in the world, who represent various disciplines of science that combine to form molecular electronics. This gathering will review the state of those arts from the perspective of molecular electronics. Such a gathering can provide cross-fertilization of ideas and (if possible) create actual collaborations. Yet another object of the conference is to publicly discuss recent scientific advances related to molecular electronics.